Colloidal Stability in Aquatic Environments: Theory, Measurements, and Applications

This is an award to support research with goals to understand the origins of colloidal stability and to evaluate its significance in the transport, fate and effects that colloids have on aquatic environmental quality and on processes for treatment of water and wastewater. Research involves development of a model describing the interfacial region surrounding particles in aqueous systems and the conduct of experiments to study the behavior of colloidal particles in aqueous media with compositions representative of fresh, estuarine and marine waters. The research includes applications of knowledge gained to environmental problems that are associated with surface and ground waters, and in treatment processes for water and wastewater. The presence of colloidal particles in water negatively impacts its environmental quality and potential usefulness. These particles also present a problem in conduct of processes to remove them from water and wastewater. Results of this research are expected to improve the engineering design of processes and systems to remove colloidal particles from aqueous systems.